Investigating Equitable Discourse Practices in Mathematics Classrooms: Conference Proposal

This Discovery Research K-12 Conference project brings together 30 key scholars and practitioners in the areas of discourse and equity to synthesize and disseminate research findings concerning the implementation of culturally relevant teaching approaches that promote equitable discourse practices in mathematics classroom. The conference takes place in Rochester, NY, in June 2008. Scholars whose research focuses on academic language as a discourse that can be learned, differences between home and school discourses, and teachers use of language in classroom environments search for common findings from their work that have implications for teachers implementation of equitable discourse practices in mathematics. The outcomes of the conference are publications that synthesize and disseminate best practices in relation to equitable discourses as well as the articulation of a research agenda that further supports teachers' efforts.